Safe implementation of nano materials and technology

1560529 (Mitra)
This proposal was submitted as an international travel award to cover transportation and lodging costs for U.S. panelists. These panelists participated in the transnational Evaluation (Peer) Review panel for the Safe Implementation of Innovative Nanoscience and Nanotechnology (SIINN) which took place in Lisbon, Portugal June 29-30, 2015. The panel was composed of 17 panelists from Europe and the U.S. of which 4 were from the U.S a total of 26 transnational proposals were reviewed by 17 reviewers.

The European Research Area (ERA-NET) is a coordination activity funded by the European Commission within the 7th Framework Program. The main objective of an ERA-NET is to provide a framework to network and mutually open national or regional research programs, leading to concrete cooperation, such as the development and implementation of joint transnational calls. The ERA-NET for Safe Implementation of Innovative Nanoscience and Nanotechnology (ERA-NET SIINN) and the Chemical, Bioengineering, Environmental, and Transport Systems (CBET) Division within the National Science Foundation collaborated to issue a call to encourage joint U.S.-European research collaborations focusing on the environmental and health impacts of manufactured nanomaterial (MNMs). The research areas identified covered 4 topic areas:

Topic 1. Exposure assessment
Topic 2. Fundamental aspects underlying toxicity mechanisms
Topic 3. Effects of MNM on human health
Topic 4. Environmental impacts of MNMs
The SIINN partners are: Austrian Ministry for Transport, Innovation and Technology (Austria), Executive Agency for Higher Education, Research, Development and Innovation Funding (Romania), Federal Ministry of Education and Research (Germany), Foundation for Science and Technology (Portugal), Fund for Scientific Research (Belgium), Ministry of Economy and Competitiveness (Spain), National Science Foundation (U.S.), and Regional Council Nord-Pas de Calais (France). The NSF contribution is part of the National Nanotechnology Initiative.

A total of 26 projects were determined to meet all eligibility criteria and subsequently underwent peer review in Lisbon, Portugal June 28-29, 2015. A panel composed of 17 reviewers were selected - 13 from Europe and 4 from the U.S. In accordance with the MOU NSF signed with ERA-Net in November, travel costs for the 4 U.S. reviewers was to be paid by NSF/CBET. The RA-Net Call Office paid for the travel costs of the 13 European reviewers.